Conference Support: Promoting Student Participation in the IEEE 1998 SPM Power Engineering Society Meeting to be Held in San Diego, CA in July 1998.

ECS-9812296 Crow In this project, a plan is outlined to continue the efforts of the Student Meeting Activities Subcommittee of the Power Engineering Education Committee of the IEEE Power Engineering Society (PES) to promote student interest in the power engineering field by sponsoring electrical engineering students to attend the IEEE PES annual Summer Meeting. The goal of this project is to provide an opportunity for US students to be exposed to the most recent developments in operation, constructions, and research in the power engineering field, This is a particularly critical time for power engineering as the industry undergoes significant change due to the restructuring of the traditional utility structure. The career opportunities for students interested in power engineering are many and varied; opportunities exist within utilities, vendors, manufacturers, and consulting firms. The impact of this program is significant and far reaching. This is an exciting time to be involved in power engineering. The power industry is currently undergoing major changes, and young engineers entering the marketplace need to be exposed to the challenges and issues these changes are causing. This program will allow students the opportunities to experience first-hand the energy and vitality of the power area. This will hopefully encourage students to pursue a life-long career in the power engineering field.